Liquid Metal Studies of Dynamos

The creation and development of large scale, organized magnetic fields is studied using a liquid sodium dynamo as a medium. The objective is to understand how noise and self-excitation grow into magnetic energy from the kinetic energy in the magnetofluid.